CAREER: Multiscale methods for high-dimensional data, graphs and dynamical systems

Maggioni
DMS-0847388

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5). The investigator
addresses fundamental problems arising from the mathematical
analysis of multiscale geometries of sets, and multiscale
decompositions of function spaces on such sets. The complexity
of the geometry of these sets, which are embedded in
high-dimensional spaces, are noisy, and often have different
dimensions at different locations, is analyzed at multiple
resolutions. He develops robust mathematical and statistical
quantitative multiscale methods of analysis, yielding estimators
of intrinsic dimensionality that are extremely robust to noise
and succeed with high probability even for small sample size. He
develops algorithms for multiscale processing of high-dimensional
point clouds much as is done for low-dimensional functions, by
means of a geometric multiscale transform. He studies and
approximates functions on data by constructing data-driven
multiscale dictionaries, generalizing approaches familiar in
low-dimensional Euclidean spaces. He develops efficient
algorithms for computing these multiscale decompositions and
dictionary expansions.

Many important application problems directly require the
analysis of high-dimensional data sets, dynamical systems, or
large graphs, or they are posed on a framework of
high-dimensional data sets, dynamical systems, or large graphs.
Such problems arise for instance in different disciplines and
real-world situations where instruments or simulations produce
large amounts of data. The investigator develops novel methods
for the analysis of high-dimensional data sets and of statistical
models with a large number of variables, under the assumption
that the number of free parameters (which in some sense
represents the intrinsic dimensionality or complexity) of the
data is small compared to that of the ambient space. He further
applies these methods to algorithms that are able to learn
functions on such data from examples, or learn models of complex
dynamical systems (e.g. molecular dynamics, protein folding,
neuronal activity, etc.), or learn behavior patterns in social
networks. This Career award is funded by the Applied Mathematics
program in the Division of Mathematical Sciences/Directorate of
Mathematical and Physical Sciences and by the Office of
Cyberinfrastructure.